CADRE: Digital Muybridge: A Repository for Human Motion Data

EIA-0079060
Hodgins, Jessica
Georgia Tech. Res. Corp.-GIT

CADRE: Digital Muybridge: A Repository for Human Motion Data

Despite their age, Eadweard Muybridge's extensive collection of filmstrips of human motion still serve as a useful resource for researchers. This project is creating a modern analog to Muybridge's filmstrips using current techniques for measurement, display, and distribution. Recent technological advances in motion capture equipment make it possible to record three-dimensional joint angle data of a human subject with high fidelity, resolution, and consistency. This project is recording motions such as walking, running, jumping, and gesturing using modern equipment. The world-wide web and the growing capacity and declining cost of disk drives allows this data repository to be easily distributed to researchers in fields including computer graphics, robotics, computer vision, and biomechanics.